Conference Support for the Fourteenth International Meeting on Ferroelectricity

NON-TECHNICAL DESCRIPTION: The Fourteenth International Meeting on Ferroelectricity (IMF2017) is being held Sept. 4-8, 2017, at San Antonio, Texas, USA. It is the first time this series of international meeting is being hosted at San Antonio and sponsored/organized by a Hispanic Serving Institute. Special attempts are made in order to enhance the students' participation from underrepresented institutes and from countries of growing economies. The meeting is to be attended by researchers coming from more than 50 different countries and regions, including substantial participation of researchers from South American countries. A significant number of attendees will be students and a substantial number of the attendees are women. The meeting will publicize materials research worldwide and bring positive impact to student/postdoctoral participants by broadening their networks, career pathways and expanding their collaboration opportunities. A successful IMF2017 meeting will publicize and accelerate research in the field of ferroelectrics which heightens competitiveness and brings broad impact in advanced electronic devices and technologies.

TECHNICAL DETAILS: The IMF meeting series provides a platform to bring together researchers from academia, industry and government laboratories to share their latest knowledge in the field and to present the development of novel applications of ferroelectricity in various interdisciplinary and cross-coupled research areas. The conference provides an inclusive and cumulative understanding of the many novel emerging ferroic and multiferroic materials. The major themes and drivers of this premier meeting have been to present/explore the recent developments enabling a new understanding of ferroelectricity, various new materials design and novel materials synthesis approaches, and advances in the field that bring out novel, emerging, and cross-coupled effects among various materials including semiconductor, magnetic and biological materials.